Partial support for the ACM Sixth Conference on Computers, Freedom, and Privacy; March 27-30, 1996; Cambridge, MA

9528128 Abelson "Partial Support for the ACM Sixth Conference on Computers, Freedom, and Privacy" This award helps underwrite speaker travel and publication of proceedings for this conference to be held Cambridge MA in March, 1996. The conference is interdisciplinary, and addresses the potential effects on society and individual freedom and privacy resulting from the use of computers, data banks, computer networks, and communications systems. NSF has provided partial support for the last four annual conferences.